Macromolecule/Electrorheological Microwave Phase Shifters

Current phased array antenna technology utilizes discrete digital or analog ferrite phase shifters which are high cost and RF power limited when in the transmit mode due to the ferrite saturation phenomena. This research investigates macromolecule and electrorheological suspensions (ERS) as a potential electrically controllable (anisotropic) microwave phase shifter when a DC field is applied. The research includes fabricatior of an experimental test fixture to measure the Kerr constant of candidate materials, and research cf the phenomena under various material, concentration and temperature conditions. Also, a mathematical model will be developed to describe behavior. Lastly, the potential configuration and performance of phase shifters using these materials will be explored. The success of this research will have widespread applications for low cost phasea array antennas for radar and in use in the telecommunications industry.